SGER-ARCiB -- Accessible Retired Computers in Biology

The Accessible Retired Computers in Biology (ARCiB) project will provide ongoing transitional support for software packages, especially those associated with structural biology, as existing hardware platforms are replaced. This will reduce disruption to research and education programs that use these software packages. ARCiB will be used to help support existing packages and make them available by remote access. If packages are open source and developer would like to transfer all or part of the support, the ARCiB will offer both an archive location for source and binaries as well as making the packages available. Undergraduates are actively involved in the research program for maintaining this multi-platform interoperability.